PPD: "Biotechnology Works!"

BIOTECHNOLOGY WORKS! University of Southern Maine P. I. Libby Cohen Biotechnology Works! recognizes the National Science Foundation's priority to facilitate the participation of persons with disabilities in mathematics and science. During two summers and two school years (1996-1998), this project will demonstrate that an existing curriculum for high school students in biotechnology can be adapted for students with disabilities. In addition, the project will demonstrate that high school teachers, who work along side their students, are able to modify their instruction and laboratories. Specifically, the project staff will: 1) offer intensive sessions in biotechnology, and mathematics that are related to biotechnology, for students in grades 10-12; 2) train the students' high school biology teachers to adapt high school science coursework in immunology and genetics for students with disabilities; and 3) disseminate project information and products. The project goal is to demonstrate that students with disabilities can participate successfully in existing high school level biotechnology educational activities that have been modified and adapted to meet their needs. Ten teachers and 10 students with disabilities will participate in the project which will be offered in three locations: the University of Southern Maine, Foundation for Blood Research, and the Maine Medical Center. This will give the students and their teachers the opportunity to work in real laboratories with scientists. ***